Industry/University Cooperative Research Center for Innovation Management Studies Phase-Out

Abstract EEC-9604481 Alden S. Bean Lehigh University This award funds a one-year phase out of the Lehigh University Industry/University Cooperative Research Center for Innovation Management. Also, two years of support for an evaluator to study the industry/university interactions occurring during the Center's phase out and one year after to study the transitions to a disciplinary program. The Center continues to meet the criteria for renewal of the Industry/University Cooperative Research Centers (I/UCRC) Program. ***